Acquisition of a Transmission Electron Microscope

Funds are requested for a transmission electron microscope. This microscope will be placed in a central training and research facility at the University of Florida and will be available to university community. The main users will be six major and at least five minor users. Research projects will be funded in the following areas: bacterial ultrastructure, fungal taxonomy, orchid scent secretion, mitochondrial ribosome substructure, glycoprotein secretion, and lobster chemoreception.